CRII: CSR: Energy-Aware Coordination and Management of Multi-Purpose Autonomous Robots for Maintained Continuity of Operations and Long Battery Lifetime.

Autonomous Robot (AR) fleets will soon assist humans for the execution of several tasks. One of the most important factors that will likely affect the widespread adoption of AR fleets in our society is their ease of management for the end users. The goal of this project is to achieve the easy management of the AR fleet by allowing end users to indicate the set of tasks to execute during a working period and by implementing algorithms that automatically (i) allocate tasks to ARs, (ii) coordinate recharge schedules, (iii) ensure continuity of operations, and (iv) minimize the battery degradation.

The intellectual merits of this project are focused on designing an AR fleet manager system that can be used by end users to interact easily with an AR fleet. Three main research thrusts are: (i) joint optimization of concurrent tasks allocation and recharge scheduling for ARs to minimize the task downtime and battery degradation during the working period; (ii) coordination of the ARs' computing and sensing resources to balance tasks performance and energy consumption; (iii) full system implementation and experimentation on a small-scale physical testbed and a large-scale simulated testbed.

The proposed work will introduce new technologies available for the management of AR fleets and boost the widespread use of autonomous robots in our society, e.g., homes, smart farms, industry, and smart cities. The project will provide a new hardware and software testbed to help train and inspire undergraduate and graduate students. New industry collaborations will be established to enhance AR adoption. New academic collaborations will also be established with researchers in various areas including robotics, artificial intelligence, control systems, sensing, and approximation algorithms.

All the new algorithms and the experimental results generated as part of the proposed project will be distributed in the form of journal articles, conference proceedings, workshops, invited presentations, and student thesis. In addition, the data, source code, simulators, and hardware details will be maintained on a dedicated research website (http://brok.eng.wayne.edu/AFM.html). This repository will be retained and maintained for at least five years after the completion of the project.